NSF TTP-P: Continuous Process for Manufacturing Softwood Kraft Lignin Carbon Fiber

This project is funded through the NSF Translation to Practice (TTP) program, which supports efforts to translate research discoveries into practical tools that benefit communities, industry, and society. Carbon fiber, a strong and ultra-lightweight material, plays a vital role in improving fuel efficiency in transportation systems, increasing the performance and energy yield of wind turbines, and enhancing structural safety in infrastructure. Its applications also extend to aerospace components, high-performance sporting goods, pressure vessels, and next-generation energy storage systems, where strength-to-weight ratio and durability are critical. However, the high cost of petroleum-based precursors currently restricts high-performance carbon fiber to premium applications. To overcome this limitation, a research team at Iowa State University is developing an innovative process to convert softwood kraft lignin, an abundant, low-cost byproduct of the paper and pulp industry, into high-quality, affordable carbon fiber. Commercializing this breakthrough technology could significantly reduce manufacturing costs while securing a reliable domestic supply of a critical structural material, thereby strengthening U.S. economic competitiveness. In addition to these commercial advantages, the project will create a high-value revenue stream for the rural pulp and paper sector by transforming an underutilized waste product into a profitable feedstock. Through close collaboration with supply-chain partners, the team aims to accelerate the transition from laboratory discovery to market-ready products, while providing hands-on training for undergraduate and graduate students in technology commercialization and entrepreneurship.

The core innovation lies in a novel processing strategy that leverages newly discovered aspects of lignin chemistry to form robust, load-bearing atomic structures at unusually low temperatures, yielding carbon fibers with exceptional tensile strength. The team further addresses long-standing challenges in lignin processing and fiber spinning by incorporating a bio-oil based modifier that enhances melt spinnability and significantly reduces thermal processing times. This project advances these breakthroughs from batch-scale laboratory demonstrations to a commercially relevant continuous manufacturing platform. In partnership with industry collaborators, the team will design and evaluate prototype composite materials to ensure consistent performance, conduct rigorous techno-economic analyses to validate market viability, and establish a strong network of industrial stakeholders. The anticipated outcome is a validated, continuous production pathway for bio-based carbon fiber, offering a sustainable, cost-effective alternative to conventional petroleum-derived materials for structural engineering applications.